IUC: Physical Characterization of High-Voltage Devices and Integrated Circuits Fabricated in Dielectrically Isolated Silicon Tubs

Efforts are underway to study design problems associated with high-voltage integrated circuits fabricated using the dielectrically isolated (DI) process technology. This is an important technology for high-voltage power control devices. The research compares analytic models to experimental data.